U.S.-Australia Joint Seminar: Electron and Ion Swarms and Low-Energy Electron Scattering; Gold Coast, Australia; July 18-20, 1991

This travel services work order (CTS-91-AUS-05) supports the transportation of eleven U.S. scientists to participate in the Joint Symposium on Electron and Ion Swarms and Low-Energy Electron Scattering, to be held in Gold Coast, Australia, July 18-20, 1991. The meeting takes place under the auspices of the U.S.-Australia Cooperative Science Program, and brings together two related symposia, one focusing on basic collisional processes and the other emphasizing applications of such processes to other fields of science, such as aeronomy, and to working technological devices. The U.S. co-organizers are Professor Vincent McKoy and Dr. Sandor Trajmar, of the California Institute of Technology. The Australian co-organizer is Dr. S. J. Buckman, Australian National University, Canberra. Australian participation is being supported by the Australian Department of Industry, Technology, and Commerce. There will be additional participation from third countries. The interdisciplinary research to be discussed at the symposium is relevant to several areas of plasma physics. One aim of the meeting is to achieve a better understanding of the fundamental processes occurring in such applications of plasmas as electrical discharge devices (e.g. lamps and lasers), plasma processing of materials, flue gas clean-up, and magnetohydrodynamic power generation, among others. To date, many successful applications of plasmas have been developed empirically, because of the lack of such a basic understanding of the processes involved. Further advances in the technology may be expected from enhancing the interaction between pure and applied science in this field, an important goal of the symposium.